Expedited Award for Novel Research: Theory and Computer Simulation of a Plasma-Driven Inverse Free-Electron Laser

This proposal was submitted for consideration as an Expedited Award for Novel Research. The PI has proposed to study theoretically a novel variant to high-energy particle acceleration utilizing laser- plasma interactions. Currently, two laser-plasma approaches are in the literature, the beat-wave accelerator and the inverse free- electron laser. The basic idea originally suggested by Bobin of introducing a plasma into the IFEL could improve significantly the acceleration gradient. The PI considers Bobin's theoretical calculations as far from complete or reliable and, in particular, feels that a treatment of phase information is lacking that is crucial to its operation. He proposes to carry out theoretical modeling and computer simulation of the plasma-enhanced concept, based in large degree on new ideas of adapting particle codes available from UCLA. The project is timely as it could serve as proof-of-principle experiments for future advanced accelerator concepts planned at the Brookhaven National Laboratory.